POSE: Phase I: Establishing the Retico Spoken Dialogue Open-Source Ecosystem for Social Robots

This Pathways to Open-Source Ecosystems (POSE) project establishes an open-source ecosystem around Retico (Real‑Time Communication), a software framework that gives robots natural, real‑time spoken dialogue capabilities. The team will bridge robotics and human-centered interaction by (1) forming bidirectional relationships with robotics companies to align with real-world platform constraints, (2) co‑designing and piloting a community-driven benchmark for natural, task‑oriented human–robot communication, and (3) running internship and externship programs that help research labs adopt and contribute modules. These efforts advance artificial intelligence (AI), human–robot interaction (HRI), natural language processing (NLP), and robotics toward real-world scenarios. By enabling speech as a simple, accessible interface, Retico lowers barriers for non‑technical users to collaborate with robots in workplaces and public settings. The open-source ecosystem, tutorials, and training programs will equip a diverse cohort of students and practitioners with transferable skills, strengthen a global research community, and accelerate responsible deployment of conversational robots.

Retico is a modular, multimodal, distributed, spoken dialogue system (SDS) designed for “robot‑ready” real‑time processing at word‑level granularity. Retico integrates time alignment, provides bindings for multiple robotic and virtual platforms, and includes more than 50 modules supporting automatic speech recognition (ASR), natural language understanding (NLU), dialogue state tracking, policy management, natural language generation (NLG), and multimodal input/output. This project strengthens governance and onboarding, expands platform‑specific bindings, and collects industry requirements to inform scale‑up (including Robot Operating System (ROS) and containerized distribution). The benchmark will require co‑located, high‑stakes, bidirectional, multimodal interactions and will be platform‑agnostic. The internship and externship programs will place trainees to build and evaluate open-source modules on partner platforms, producing reproducible systems and sustainable community practices.